The Study of Oxygen Isotopic Fractionation Mechanisms in Ozone Formation and Measurement of these ratios in air O2 at ultrahigh precision.

In the past decade the scientific community has become more aware of the complex photochemical reactions which occur in the middle atmosphere. At an altitude of about forty kilometers and above molecular oxygen (O2) is dissociated by ultraviolet light and the oxygen atoms formed react with O2 to create ozone (O3). These reaction sequences are responsible for creation the layer of ozone which shields the earth's surface from harmful ultraviolet radiation. Interest in the ozone photochemistry has been spurred by concerns that human activities such as high flying aircraft, chlorofluorocarbon release to the atmosphere, and atmospheric release of nitrous oxide by agriculture might result in the destruction of ozone in the middle atmosphere. Since the early 1970's laboratory and field investigations have been carried out in order to better define stratospheric chemistry and man's potential of perturbing this delicate system. In the course of these studies it has been discovered that ozone in the middle atmosphere is apparently enriched in the heavy oxygen isotopic (i.e., oxygen atoms which weigh more than the most common oxygen atoms.) This finding of anomalously distributed oxygen isotopes in the ozone layer has been the subject of scientific questioning and debate since current knowledge about the mechanisms and rates of ozone production and destruction does not predict the observed isotopic composition of ozone. This is a renewal of NSF support under the grant ATM-